Mathematical Sciences: Nonlinear Dynamical Systems in Mechanics and Biology

The principal investigators undertake studies of a variety of problems in mechanics and biology, using techniques of nonlinear dynamical systems. The topics include the dynamics of dissipative partial differential equations and pattern formation in fluid systems, global dynamics of symmetric systems, knots and orbit genealogy in three-dimensional flows, dynamics of oscillators with slowly varying potentials, modelling of neurobiological oscillators, iterations of one-dimensional mappings, nonlinear stability and bifurcation in Hamiltonian and weakly damped systems. Arnold diffusion in four-dimensional symplectic maps, and dynamics of the growth of certain plants. These topics have applications in the design and development of "smart" materials, in aerospace (particularly satellites and spacecraft), in the control of turbulent boundary layers,and in biology.